Simple Molecular Solids at Ultrahigh Pressure

9624050 Hemley The behavior of solid hydrogen and related molecular systems will be investigated with newly developed experimental techniques to pressures in excess of 300 GPa and temperatures down to 2 K. Both recently discovered and theoretically predicted novel transitions in these materials will be examined, including metallization at the highest pressures. The experiments will be conducted with diamond- anvil cells used in conjunction with synchrotron x-ray diffraction and synchrotron infrared, Raman, Brillouin, and optical spectroscopic methods. The diamond anvils will include high-strength, high-purity synthetic crystals. The experiments will probe the crystal structures, orientational states, phase diagrams, and vibrational electronic properties of the high-pressure molecular and non-molecular states. The high-pressure behavior of newly discovered stoichiometric hydrogen compounds will also be investigated, and new techniques for exploring matter at still higher pressures will be developed. The results of this project will provide critical tests of fundamental theories of condensed matter physics, will aid in the design of new materials, and will provide important information on the interiors of the large planets. %%% Hydrogen is the most abundant element in the cosmos and the key to a wide range of fundamental problems in the physical sciences. At low temperatures and under moderate pressures, the material crystallizes as a diatomic molecular solid. At sufficiently high pressures, however, the molecules are predicted to break down to form an atomic metal with novel and potentially important properties such as high- temperature superconductivity. At high temperatures, this material in the fluid state is the major constituent of the large gaseous planets, and at still higher temperatures, of stars. Information on the behavior of hydroge n as it evolves towards these novel states requires detailed study with high-pressure techniques. Resent advances in diamond- anvil cell techniques have permitted materials to be compressed and studied to pressures in excess of 300 GPa (3 Mbar or three million atmospheres pressure). These techniques will be used together with x-ray and infrared radiation from high-energy electron storage rings, synchrotrons, laser techniques, and other optical methods to probe the nature of hydrogen and related substances in the newly accessible range of pressures. The results of the work will provide critical tests of fundamental theories of condensed matter physics, will aid in the design of new materials, and will provide important information on the interiors of the large planets. ***